CAREER: Perfect sampling techniques for high dimensional integration

This project will develop and analyze new computational methodologies for
generating random variates from high dimensional distributions where the
normalizing constant is unknown. These random variates are then used to
obtain approximations for problems involving high dimensional
integrations. Algorithms employing random variates are known as Monte
Carlo methods. Direct methods often suffer from running times that are
exponential in the dimension of the problem, whereas Monte Carlo
approaches can have a polynomial or even linear running time.
Applications include estimate of parameters arising from probabilistic
models, approximation of exact p-values in statistics, and efficient
algorithms for approximate solutions to NP complete and \#P complete
problems. The new algorithms are in a class of methods known as perfect
sampling algorithms. Existing perfect samplers such as Coupling From the
Past have made an impact on Monte Carlo methods, but suffer from certain
flaws that limit their applicability. Here new methodologies such as the
Randomness Recycler and other modifications and generalizations of
acceptance rejection approaches will be used to solve these problems. As
part of this project, new classes will be developed and undergraduates
and graduate students will have opportunities to work on problems arising
in this area.

Today our data collection abilities are better than at any point in
history, but the time needed to analyze data can grow exponentially
in the amount collected. The use of randomness in designing algorithms
for analysis of data can result in enormous benefits in speed and accuracy.
These techniques have been a cornerstone of computational methodology
for the last fifty years. Statistics, finance, signal processing,
physics, and genetics are but some of the areas that have benefited
from the injection of randomness into the design of algorithms.
However, existing methods are not without difficulties. A new class of
algorithms called perfect sampling methods solves many of these problems
in specific cases, but their applicability is limited. The goal of this
project is to extend the reach of these methods by introducing new types
of perfect sampling algorithms. The result will be faster, more accurate
algorithms of the type used by practitioners every day in a wide variety
of fields.